Presidential Young Investigator: Surface Organometallic Chemistry in Catalysis and Microelectronics

The chemistry and physics of metal clusters are studied, especially as they relate to heterogeneous catalysis, synthesis of ceramic powders, and genesis of metal- semiconductor interfaces. Three areas are addressed. The catalytic activity of organotungsten complexes toward hydrogenation of carbon monoxide is studied as a function of support and promoter. Chemisorption of hydrogen and of carbon monoxide on very small (5-50 atoms) clusters of Group VIII metals is investigated as a function of cluster size and shape. The reactions of reactive organometallic complexes on clean surfaces of indium phosphide will be investigated as a route to low-defect interfaces for microelectronic applications. A variety of techniques are used including temperature-programmed reaction (TPR) and extended X-ray absorption fine structure (EXAFS). This research is relevant to the production of high-technology ceramics, the development of new catalytic processes, and the production of high-quality microelectronic devices. It is also pertinent to the more general problem of the production and application of very small organized clusters, sometimes called nanostructures.